Reduction of the Parameter Space in the Study of Composite Materials

9402285 Jasiuk This research is to study the local fields and effective properties of composite materials. In particular, building on some recent efforts in other problems, the possibility of reducing the number of independent variables will be evaluated. Various interfacial conditions will be considered. The resulted of this study will apply to any heterogeneous material and therefore contribute to a more fundamental understanding in materials science. ***